CISE Research Instrumentation: High-Speed Motion Acquisition

EIA-9986010
Christoph Bregler
Stanford University

CISE Research Instrumentation: High-Speed Motion Acquisition

The Departments of Computer Science and Mechanical Engineering will purchase 2 high-speed multi-camera setups, a RAID videodisk, and 2 Pentium PC's and an animation software package. This equipment will be dedicated to the support of research in computer and information sciences and engineering. The equipment will be used for several research areas including, in particular, projects addressing:

Anterior Cruciate Ligament-Functional Biocmechanics
Human Motion Models for Tracking and Activity Interpretation
3D Motion Acquisition for the Stanford Immersive Television Project
Animation of realistic and believable characters

The general thrust of these efforts is to develop high-quality acquisition and analysis techniques of human movements.